EarthScope National Meeting - 2005

0525744
van der Vink

The EarthScope National Meeting consists of pre-meeting workshops, plenary science
and education talks, workshop summaries, poster sessions, short-courses, and panel discussions.
The EarthScope National Meeting will: 1) summarize, discuss, and synthesize EarthScope
science and education, 2) consolidate the results of regional workshops to identify common
questions and research tools, 3) extend EarthScope outreach to the broad scientific community
by scheduling an array of diverse talks, 4) update the community on ongoing EarthScope science
and education progress, 5) continue to build the EarthScope community and concentrate on
cross-cutting science, 6) promote interdisciplinary research, and 7) further define the vision of
EarthScope science and how is it different from traditional science.